Materials Chemistry of Bonding Photoactive Oxide Semiconductors to Solid Substrates

9315780 Heller This work is concerned with the chemical concepts for bonding 10- 100 nm diameter monocrystallites of photoactive oxide semicon- ductors with defined optical, electrical and photoelectrochemical properties to different glass and ceramic substrates. The objective will be the building of a foundation for a bonding technology, whereby bonding of the semiconducting oxide crystallites to silicate glasses and ceramics would not introduce damaging junctions with the substrate, i.e. would not result in recombination centers that would drastically reduce the quantum efficiency of the hole or the electron reactions at the opposite interface, in contact with a gas or a liquid. The approach is based on modifying the back contact by an interlayer of an oxide with an increased band gap, so that the change carriers will be strongly repelled from the back. ***